Historic Glacier Change in the Western US: Database and Modeling

This proposal develops a comprehensive GIS database of historic glacier
change in the American west, exclusive of Alaska. We will define the
spatial extent and temporal variation of glaciers in the American west
based on the historic record derived from topographic maps and from aerial
and ground-based images stored in federal and state agency archives,
university libraries, and in hiking clubs. We expect to find at least two
extents at different times for every glacier in the west. In some well
visited areas (e.g. Mt. Rainier, Glacier National Park) we will find many
glacier extents over time. These data will be compiled in a GIS database
from which the magnitude and rates of change will be derived. The
database will be made publicly available via the world wide web for use by
professionals, educators, and the general public. In addition to the
shape files of glacier extent, we will include photographs and
bibliographic references when available. This achievement alone will
accelerate our understanding of spatial and temporal patterns of glacier
change. Volume changes will be estimated, where topographic data are
absent, through area-volume scaling equations. This is a critical step
towards defining the effect of glacier mass wastage on stream flow and
global sea level rise. We will also test whether a cellular automata
approach can reasonably predict the location and geometry of individual
alpine glaciers within a given alpine region. The model will be driven by
climate and numerically grow glaciers to an equilibrium geometry on the
known topographic surface using a set of rules based on a simplification
of glacier physics.